Biodiversity and Ecosystem Informatics - BDEI: Designing an Infrastructure for Heterogeneity of Ecosystem Data, Collaborators and Organizations

EIA-0131958
Bowker, Geoffrey
University of California - San Diego

BDEI: Designing an Infrastructure for Heterogeneity in Ecosystem Data, Collaborators and Organizations

Project Summary

Biodiversity and ecosystems data are currently being gathered in a large range of formats by a
constellation of loosely connected private, government and not-for-profit agencies. The normal response
to this double heterogeneity has been the development and enforcement of metadata (data about data)
standards; in this response one tries to abstract data away from its organizational context in order to
render it universally accessible. This project takes the opposite track, and seeks new ways of grounding
environmental data in its organizational context in such a way that it can both be used more flexibly today
and so it can retain its value longer. The hypothesis, based on the last 25 years of work in the field of
Science Studies, is that formal data descriptions must be wrapped in informal descriptions in order to
be useful. The informal description for short-lived data is provided by face-to-face contact, by
exchanging graduate students, through conference papers and so forth. It is precisely this layer which is
lost in highly distributed data collection efforts characteristic of biodiversity and ecosystem informatics; it
is also this layer which is lost when data is wrapped in formal metadata and saved to disk. The goal of
this project is to open up a major new field of database inquiry tied precisely to the specific problems of
the biodiversity and ecosystems communities generated by their need for very long lasting and highly
distributed data. The project will develop into a larger study of the articulation between metadata and
narrative modes of wrapping data.